Education Briefings on Policy Analysis Support to Global Change Issues

9316556 Mesarovic This award addresses a need to develop effective policy analysis tools to help decision makers, their staff, and the general public absorb a plethora of scientific findings when assessing alternative policies. Decision support concept and technology is being effectively used by industry when addressing complex issues burdened by uncertainties. Global change issues are within the category of complex and uncertain problems. Briefings will be conducted in the Cleveland, Ohio area to help bridge the gap between global change scientific research and the public domain with regard to the assessment of alternative polices relating to global issues. ***